Mathematical Sciences: RUI Some Problems in Complex and Real Dynamics

9316919 Atela The investigator plans to study several problems in complex dynamical systems including the geometry of the Mandelbrot set. Another component of the research involves study of the three body problem in celestial mechanics along with bifurcation and chaotic phenomena. Undergraduate students will also be supervised as part of the scope. The research has potential applications to cosmology, fractals and the analysis of chaos. ***